Support of Student Attendance at a Conference: Third Meetingof The Society for Research on Biological Rhythms: May 6-10,1992: Amelia Island, FL

This award is being given to support student attendance at the Third Meeting of the Society for Research on Biological Rhythms to be held in May 1992. The three-day meeting will include a plenary lecture, symposia, workshops, slides presentations and poster presentations. Attendance will allow students to interact with senior researchers in the field. This type of interaction is an important aspect of training of young scientists. Knowledge of biological rhythms is critical to understanding diurnal rhythms of hormones and brain transmitters in humans as well as seasonal cyclicity in other animal species.